Analysis of Lagrangian Chaos in Estuaries

An examination of Lagrangian chaos caused by barotropic currents will be accomplished by this project. This will be done by using kinematic models with prescribed Eulerian currents. An alternative mechanism for dispersion within estuaries is a potential result of this study; i.e. dispersion without turbulence in the system.